CRI: Infrastructure for Managing and Analyzing Large Scale Biological Data via Utility Computing

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Infrastructure for Managing and Analyzing Large Scale Biological Data via Utility Computing
Proposal: CNS 0551603
PI: Yang, Jiong
Institution: Case Western Reserve University

Investigators at Case Western Reserve University will develop computing infrastructure to enable research in five bio-informatics application areas that have challenges in computing, data management and communications. Data intensive application projects include studies of biochemical pathways at multiple levels and searching and data mining in PubMed literature. Computation intensive applications include correlation discovery in two problem areas genetic variation in human populations and circadian rhythms. The communication intensive application is surgical planning simulators. The investigators will develop a utility computing infrastructure and explore computer science research issues such as load balancing, scalability, and multicast based data dissemination.